Interdisciplinary Coaching As a Nexus for transforming how institutions support undergraduates in STEM (iCAN)

A significant need exists to increase the number of STEM majors from underrepresented populations who are entering the STEM workforce. Nationally, fewer than 40% of undergraduates who intend to major in a STEM field complete a STEM degree. Traditional institutional reform efforts focus on system-level changes in instructor behaviors and supports. Unfortunately, current institutional reform efforts have not had an immediate wide-scale impact on the attrition rate of STEM majors. This project will examine how practicing in-service teachers can use mobile technologies to coach undergraduates in STEM majors who have executive functioning difficulties (e.g., higher order cognitive abilities such as planning, problem resolution, and mental flexibility) so that they can successfully complete introductory STEM coursework.

The "Interdisciplinary Coaching As a Nexus for Transforming how Institutions Support Undergraduates in STEM (iCAN)" is an exploratory project that will occur over two years. iCAN is a hybrid model of supports that relies on team coaching and mobile technologies (e.g., tablets & smartphones) to help undergraduates achieve executive function abilities that are critical to science, technology, engineering, and mathematics (STEM) success. The project team will systematically investigate how a successful model for enhancing undergraduate STEM learning and persistence at Landmark, a small rural college in Vermont, can be migrated to the University of Central Florida, which is the second largest university in the United States. The project benefits both the graduate student teachers and undergraduate STEM majors. It also provides practicing teachers with insights regarding how to better prepare students to be successful in STEM majors at the undergraduate level. If this program proves as effective as expected, it will enhance STEM learning, persistence, and entry into the STEM workforce for all undergraduate students, particularly those with executive function deficits.